Engineering Research Equipment: Mass Spectrometer for Chemical Vapor Deposition Kinetic Studies

The Principal Investigator (PI) plans to assemble a quadruple mass spectrometer for assisting with mechanistic studies of chemical vapor deposition (CVD) processes. The vacuum system for the spectrometer is to include two stages of differential pumping to allow in-situ sampling of gas phase species from CVD systems under reaction conditions. The system will be assembled as a portable unit with an adjustable sample probe orientation in order to allow flexibility for using the system with different CVD reactor configurations and multiple users. One application for the equipment will be to assist with the PI's current research into the reaction mechanism, kinetic parameters, and reactor design models for the CVD of copper thin films. The equipment will also be suitable for a range of other projects, both in the PI's laboratory (e.g. TiO2 CVD using alkoxide pyrolysis) as well as other investigators who are studying gas-solid reaction kinetics (e.g. methane oxidation research).